Student Support for the 10th USENIX Conference on File and Storage Technologies (FAST)

This award provides funding to assist approximately 10 US-based graduate students to attend the 10th USENIX Symposium on File and
Storage Technology (FAST), which is held on February 14-17, 2012, in San Jose, CA.